An Experimental Study of the Rate of Cation Interdiffusion along Dislocations in Olivine: Contribution to Bulk Diffusion Rates

The principal investigator will study the degree to which ductile strain increases bulk diffusion rates in olivine. Experiments will be performed in a Griggs apparatus, and the resulting samples will be examined via electron microscopy and with the electron microprobe. The results will be important to structural geologists, geochemists, and metamorphic petrologists who deal with kinetics and equilibrium in deformed rocks.